Social Change and Shifts in Labor's Legislative Agenda: The U.S. Labor Movement, 1881 - 1987

This study will examine the impact of social change on shifts over the last century in the legislative agenda of the U.S. labor movement. The study will address how factors such as industrialization, capital concentration, status differentiation in the working class, and the increased economic role of the state may have influenced the labor movements increasingly redistributive legislative agenda. The study will use time series regression analysis to analyze data derived from the Labor Federation Resolutions File, a comprehensive inventory of labor's legislative agenda. The study will contribute to our understanding of how social, political, and organizational changes in American society have affected the relationship between organized labor and the national government.